Conference: International symposium on crystalline organic metals, superconductors, and magnets

Non-technical Abstract:

This award partially supports the International Symposium on Crystalline Organic Metals, superconductors, and magnets (ISCOM), which will be held from September 22 - 27, 2024 in Anchorage, Alaska (USA). This is the 15th workshop in the ISCOM series which was started in 1995. Typically, these meetings alternate between Europe, Asia, and North America but has not been held in the United States since 2005. The symposium will balance theory and experiment with coverage of many contemporary issues. This symposium is designed to inspire new collaborations and provide opportunities for the education and growth of a diverse group of young people including via a student tutorial session before the main conference.

Technical Abstract:

This conference aims at advancing the fundamental understanding of molecular and molecule-based materials, which includes cutting edge topics in condensed matter physics such as non-equilibrium phenomena, particularly in high magnetic fields; molecular ferroelectrics multiferroics and chiral system; and competing interactions, electron correlations, and superconductivity in low-dimensional systems. A diverse set of US and international researchers present in the student tutorial and the technical sessions, with a priority on highlighting the work of young researchers.